Research in Ring Theory and Noncommutative Algebraic Geometry

Proposal Title: Research in Ring Theory and Noncommutative Algebraic
Geometry

Principal Investigator: K. R. Goodearl

The Principal Investigator proposes to continue his investigations
into the structure of various classes of noncommutative rings,
particularly quantum coordinate rings (quantized algebras of
functions) and related algebras, with a focus on geometric aspects of
noncommutative rings and ring-theoretic aspects of noncommutative
algebraic geometry. The proposed projects, located within
noncommutative algebra, will build up the infrastructure of and
interconnections among active parts of several related areas -- ring
theory, noncommutative algebraic geometry, and quantum groups. Roughly
speaking, the long-term goals framing many of these projects stem from
noncommutative algebraic geometry, and the basic examples come from
quantum groups, while many lines of approach are recruited from ring
theory. The main focus will be on algebraic and geometric features of
the prime and primitive spectra of quantized coordinate rings. The
goals include classification of prime ideals, finiteness conditions
for prime ideals invariant under tori of automorphisms, verification of
supporting properties such as Auslander-regularity and
Cohen-Macaulayness, and presentations of quantized prime or primitive
spectra as topological quotients of classical spectra or varieties.

A pervasive theme in the mathematical study of geometric objects is
that the properties of these objects are completely encoded in the
functions on them, and are often more accessible via these functions
than directly. Within algebraic geometry -- the study of geometric
spaces defined by polynomial equations -- it is the polynomial
functions on a space that determine it. These functions form a ring (a
system endowed with compatible addition and multiplication operations)
which is, moreover, commutative (fg = gf always). In the 1980s,
researchers in the former Soviet Union, in the process of solving
certain problems in theoretical quantum physics, discovered rings
which appear to enjoy all the structure of rings of functions on
geometric spaces, except that the multiplication is noncommutative. In
honor of their origins in quantum theory, these rings are now called
"quantized coordinate rings." It proved very useful to treat them as
if they were rings of functions (except for the noncommutativity), and
the guiding principle in their study became the search for
"noncommutative versions of the geometry." Sufficiently many common
phenomena (both geometric and algebraic) have been discovered in a wide
range of quantized coordinate rings to lead one to conjecture that
general, axiomatizable underpinnings within this class of rings are
responsible for the parallels in their behavior. The main long-term
thrust of the PI's research is to uncover such general structures and
decode their geometric content. In the medium term, the proposal aims
to extend the range of known shared phenomena within this class of
rings, in order to gain better insight into their common base.